Experimental Measurement and Numerical Modeling of Augmented Heat Transfer in Intermittently Grooved Channels

ABSTRACT Greiner CTS-9501502 U/Nevada-Reno This work will provide experimental data and numerical modeling for the heat transfer and pumping power in passages with transverse grooves. Such grooves have been shown to augment heat transfer without a commensurate increase in pressure drop, a long-sought-after effect, as in most cases the increase in heat transfer effectiveness is overridden by high pumping costs to overcome the commensurate increase in pressure drop. Applications are in compact heat exchangers for aircraft and other high-density heat transfer equipment and in industrial scale heat exchange equipment.